High School Psychology Teacher Workshop -- A Network Approach

Each year for three years, 40 teachers of high school psychology will be chosen to attend a four week workshop at the University of Houston. The workshop has a multiplicity of components where each of the teachers would learn about psychology, educational theory and research, aiding the development of effective demonstrations and teaching techniques, and fostering communication between high school and college teachers. Over the course of the next two years, each teacher will agree to complete a research project in some particular area of psychology. Each teacher is expected to access an electronic network where a five to ten page update will be posted at least once each month. These updates will be prepared initially by the faculty of the University of Houston and Western Carolina University, but will be broadened in succeeding years to include faculty from other universities. The cost share of this project represents 21.3% of the grant request.